MESA Young Scholars Early Alert Initiative, Physics of Robotics

* 9553521 Reinhall The University of Washington will initiate a four-week, summer commuter, Young Scholars project for 40 Seattle high potential and economically disadvantaged students in grades 7th and 8th. The project provides students with an opportunity to engage in classroom, laboratory, field trips, and research activities with university faculty during the summer. The project terminates during the academic year with the design and construction of a complex engineering system involving a robot. ***